CDI-Type II: Collaborative Research: Computational Homology, Jamming, and Force Chains in Dense Granular Flows

This project will employ a highly interdisciplinary approach that integrates new
geometrical techniques, modeling, and experiments to address fundamental, open
questions concerning the physical properties of granular media and other jammed
materials such as glasses, foams, and colloids. The hallmark of jammed materials is
that they resist applied forces like solids, but are disordered like liquids. In addition,
many jammed materials possess heterogeneous, ramified structures known as force
chain networks when external forces are applied. Although the existence of force
chains has been known for decades, a quantitative understanding of their role in
physical processes has proved elusive in part because previous studies have been
unable to devise an unbiased and general definition for them. Precise identification and
characterization of force chains and the response of jammed materials to applied forces
will likely have a transformative impact in many arenas. For example, financial and
energy costs of handling and processing of granular materials, typically with high
inefficiency, is estimated to be at least one trillion dollars in the US alone. Also,
avalanches and earthquakes are examples where the unpredictable behavior of
granular media detrimentally impacts mankind. In this work, we will apply novel
mathematical techniques coupled with computer simulations and experiments to obtain
a quantitative, predictive description of jammed materials.
The outreach efforts of this project emphasize providing educational opportunities to
students from underrepresented groups. We will organize education and recruiting trips
to predominantly female liberal arts colleges in the Northeast and historically black
schools in North Carolina, such as North Carolina Central University, and others in the
Southeast. These trips will include giving technical and popular lectures, including
demonstrations to show that research on jammed materials is intriguing and important.
During informal meetings with students we will emphasize that careers in science and
technology are rewarding and open to those in underrepresented groups. To stimulate
further student interest in this research, we will hold biannual 2-day lab open houses so
that promising undergraduates can be exposed to both experimental and theoretical
aspects of our research. To encourage close collaboration among researchers in the
field of jammed materials, we will organize biannual interdisciplinary workshops. The
inaugural workshop, ``Computational Homology Tools Applied to Jamming and Flow in
Granular Materials'' is scheduled for the winter of 2009.